CAREER: A Unified Theory of Pseudorandomness

CAREER: A Unified Theory of Pseudorandomness
Salil P. Vadhan

During the past few decades, randomization has become one of the most
pervasive paradigms in computer science. The best known solutions to
many problems in algorithms, cryptography, reliable communication,
network design, combinatorics, and distributed computing surprisingly
involve making random choices. Thus randomness appears to be very
useful, but it is still not known to what extent it is truly
necessary. Thus, this research asks: is it possible to reduce or even
eliminate the need for randomness in the above settings? The
investigators address this question via the paradigm of
Pseudorandomness, which is the theory of efficiently generating
objects that "look random" despite being constructed using little or
no randomness.

Specifically, this research builds upon deep connections recently
discovered between four pseudorandom objects, namely pseudorandom
generators, expander graphs, error-correcting codes, and extractors.
The investigators seek to strengthen these connections and use them to
attack some of the open problems in the area, such as the construction
of expander graphs with optimal expansion, the derandomization of
space-bounded computation, and a complete understanding of the
relationship between derandomization and circuit lower bounds.
Students at all levels are involved in the research, including
undergraduates who explore conjectures about expander graphs through
computer experiments. The research is tightly integrated into new
courses being developed by the investigators, including a graduate
course on Pseudorandomness, which focuses on the unified theory that
is emerging; and an undergraduate course on Cryptography, which
emphasizes the role of pseudorandomness in modern cryptography.